Development of Neon As a Scintillator For Solar Neutrino Detection

Funds from this award will support exploratory research for the rapid
development of novel cryogenic scintillators. This project has special
urgency because of the potential broad application of these
scintillators to a variety of established research topics, such as the
observation of low energy solar neutrinos and the detection of cosmic
dark matter. If these scintillators work as well as expected, the
impact of this work on the field of non-accelerator particle physics
would be profound and immediate. The proposed cryogenic scintillator
would consist of liquid or solid neon, possibly doped with a small
amount (1%) of xenon. Condensed neon holds special promise for
low-background measurements, but its scintillation yield and optical
properties have received scant attention in the past.